Supporting Diversity in the Learning Sciences: A Request for Program Support to Build Capacity for Junior Researchers at the International Conference of the Learning Sciences

This proposal from UCLA requests funds to send junior researchers to the International Conference of the Learning Sciences and to provide them with specialized sessions to develop their research skills. The proposal will fund travel for 15 graduate students who will be chosen to represent a range of institutions, individuals and areas of specialty. Participants will be expected to prepare a short summary of their research goals as part of the application process and to prepare a presentation for the meeting itself.